An Introduction to Engineering for Early High School Students

9452700 Abraham The University of Tulsa seeks to initiate a four-week, residential, Young Scholars program in engineering for 36 students entering grades 9 and 10. The primary components of this program are the on- campus sessions at the university where the scholars interact with engineering faculty, undergraduate engineering students, and representatives from industry. Specific activities include hands-on engineering laboratory experiments, an engineering design project, industrial site visits, workshops in engineering ethics, and computer training sessions. One of the goals of the program is to make engineering as a career come alive for the young scholars, especially Native Americans, while at the same time help them to understand the educational foundation they must acquire in high school in order to confidently and competently pursue an engineering career.